Travel Support for the 13th International Conference on Nucleation and Atmospheric Aerosols

Travel support is requested for US (non-government) and foreign scientists to attend the 13th International Conference on Nucleation and Atmospheric Aerosols to be held in Salt Lake City, Utah, 24-28 August 1992. The four major topics of the Conference are: (1) fundamental processes of nucleation, (2) cloud droplet nucleation in the atmosphere, (3) ice nucleation in the atmosphere, and (4) formation, characteristics and climatological effects of atmospheric aerosols.